A Space Physics PhD (Doctoral Degree) Data Analysis Summer School Program; Kananaskis, Canada; June-July, 2019

Early career faculty and graduate students from the University of Iowa will attend and participate in the international Canada-Norway Rocket Science Training and Educational Program. This is a PhD summer school focused on data analysis from space-based and ground-based instruments with the aim of uncovering features of scientific significance within the data set. The faculty members will teach part of the course material and gather feedback from the students. They will assess the feasibility of hosting a similar school at the University of Iowa in tandem with the international school.